RUI: Functional Dissociation within the Hippocampal Formation: Learning and Memory

Jarrard 9505299 The hippocampus and adjacent brain structures (subiculum, entorhinal cortex) have been implicated in the processes underlying learning and memory. With this award, Dr. Jarrard will lead a group of undergraduate students in studies of these brain regions. Selective inactivation will be used to test the role of each structure in several different learning tasks. This work will expand our understanding of the interconnected brain systems that subserve different forms of memory. Furthermore, the project will provide valuable training for young scientists in training. ***